Excellence Through Research

The Center for Energy Studies and the Department of Mechanical Engineering at University of Texas-Austin will involve approximately 36 undergraduates over a three year period in energy research (12 per summer). Schools from which these students will be recruited will have a high predominance of under-represented groups enrolled, such as Prairie View A&M, Pan American, Texas Southern, Texas A&I, University of Texas at San Antonio, University of Texas-El Paso. The goal is to have at least 75% of the participants chosen from the aforementioned schools in the female, minority, or disabled categories. The balance of the research opportunities will be awarded to qualified minority/female students from the University of Texas-Austin campus.